Quantization on Cotangent Bundles

PI: Brian C. Hall, University of Notre Dame
DMS-0200649

Abstract:

The PI's research concerns the quantization of certain
special classical systems, those whose classical configuration
space is a compact symmetric space, such as a sphere. The
simplest physical example of such a system is (the rotational
degrees of freedom of) a rigid body, whose configuration space is
the rotation group SO(3). The phase space of any such system,
namely, the cotangent bundle of the compact symmetric space, has
a natural complex structure that makes the phase space into a
Kahler manifold. Thus the quantization of such a system can be
done in two ways, one using the usual position Hilbert space and
the other using a Hilbert space of holomorphic functions. The
latter space generalizes the classical Segal-Bargmann space. The
two possible quantum Hilbert spaces are related by a unitary
transform, the generalized Segal-Bargmann transform, developed by
the PI and M. Stenzel. The unitarity of this transform can be
re-formulated as a resolution of the identity for the associated
"coherent states," as shown in detail by the PI and J. Mitchell.
These results have been applied to the quantization of
two-dimensional Yang-Mills theory and to the classical limit of
Thiemann's quantum gravity theory. The PI is continuing to
investigate several aspects of the theory, including the
semiclassical localization properties of the coherent states,
properties of the associated quantization schemes (generalized
Wick, anti-Wick, and Weyl quantizations), and the relationship of
the theory to geometric quantization.

Broadly speaking the PI's research is in the boundary
region between classical and quantum mechanics. Quantum mechanics
is the theory that governs the world at the atomic scale.
Although classical (Newtonian) mechanics works well for
macroscopic phenomena, it cannot account for the structure of
atoms and molecules--at this level the quantum theory takes over.
For the two theories to be consistent with one another the
predictions of quantum mechanics must pass smoothly into those of
classical mechanics as the scale passes from microscopic to
macroscopic. On the other hand, the mathematical structure of the
two theories is very different, so it is challenging to
understand how this quantum-to-classical transition takes place.
The PI's research concerns a reformulation of quantum mechanics
which is equivalent to the usual one but which brings the
description of quantum mechanics closer to that of classical
mechanics. Specifically, the PI's work takes one standard
reformulation of quantum mechanics, the Segal-Bargmann transform,
and extends it to apply to systems with more complicated degrees
of freedom, such as rotations. This work has been applied in a
simplified model of the strong interaction in particle physics
and in an ambitious program of T. Thiemann and collaborators to
develop a quantum theory of gravity.